NIRT: Nuclear hyperpolarization for organic and inorganic semiconductor nanostructures

This work will use optical pumping (OP) and spin-injection (SI) methods to
generate massively athermal nuclear spin polarizations for exploitation in nanostructured
semiconductor devices. The proposed research aims to develop a fundamental
understanding of the electron-nuclear cross relaxation in a host of materials engineered to
exhibit structural features ranging from bulk to mesoscale to quantum dots. In the course
of these studies, new phenomenology in the form of nuclear spin hyperpolarization in
novel inorganic and polymeric semiconductor structures is anticipated as well as the
development of new analytical tools for the measurement of nuclear polarization. This
work will use the newly developed understanding of OP and SI to design new application
experiments and devices.

The intellectual merit of the proposed work lies in the assertion that measurement
and observation are of intrinsic and fundamental value in developing an understanding of
the natural world. A more complete understanding of nuclear hyperpolarization could
potentially overcome limitations in current analytical spectroscopic methods (i.e., NMR,
MRI) by providing the mechanism for greatly enhanced signals as well as assist in the
creation of spintronics and quantum computing devices.

The proposed research is expected to have a broad educational outcome because it
will offer students a unique inter-disciplinary scientific education and exposure to teams
of diverse and complimentary backgrounds. Undergraduate students from both CCNY
and UC Berkeley will be involved in the research and will spend summers visiting the
alternate campus to broaden their scientific horizons. This research will also be used to
inspire freshmen during a pivotal point of their undergraduate education through a series
of seminar discussion courses. Long-distance seminars and group meetings between the
CCNY and UC Berkeley groups will be used to ensure the synergistic nature of the
consortium.